Engineering Initiation Award: Inverse Design of Flow Headers for Heat Exchangers.

The performance of heat exchange devices is negatively affected when the fluid flow entering the device is distributed nonuniformly. The thrust of this proposal is a numerically implemented scheme for predicting the shapes of the inlet manifold of heat exchangers which alleviate the flow nonuniformities. The basis of the scheme is the boundary- integral-equation method of solving the governing equations for inviscid flow. The predictions of the numerical scheme will be subjected to experimental verification. For this purpose, measurements of the fluid velocity will be made using a laser Dopler velocimeter.